Molecular Markers of Iron Limitation: Use of Flavodoxin to Assess the Iron Status of Phytoplankton

9314371 GEIDER This project will examine the iron status of marine phytoplankton using immunological probes of flavodoxin abundance. Flavodoxin commonly substitutes for the iron-sulfur protein ferredoxin as an electron carrier in the photosynthetic electron transfer chain of algae and cyanobacteria under iron limited conditions. Flavodoxin appears to have the attributes of a good molecular marker of iron limitation because: (1) it only accumulates when iron is limiting, (2) it is stable enough to allow isolation and quantification, and (3) it shows a strong signal in response to iron limitation. In addition, flavodoxin may be quantitatively accumulated under Fe- limiting conditions allowing estimation of relative growth rate if the complicating effects of interactions with irradiance and nitrogen source can be taken into account. An antibody to a diatom (Phaeodactylum tricornutum) flavodoxin that cross reacts with flavodoxins from other diatom species has already been developed. The project will proceed along three related lines. First, flavodoxins will be extracted from other taxa (cyanobacteria, cryptomonads, prasinophytes, chlorophytes), to test for cross-reactivity with the diatom antibody, and to develop taxon-specific antibodies as needed. The antibodies will be used to develop quantitative immunoassays for flavodoxin in total protein extracts of marine particulate matter to examine bulk flavodoxin concentrations, and to develop single cell immunofluorescence assays to examine heterogeneity in the iron status of natural phytoplankton populations. Second, the project will examine the ecophysiology of iron limitation in diatoms using flavodoxin synthesis as a measure of the internal iron status. The project will also use measurements of the concentration of dissolved "available" iron below which flavodoxin synthesis is induced to develop a bioassay for measuring "available" iron. Diatoms will be used for these experiments. Third, the project will u se immunofluorescent techniques to measure flavodoxin abundance in samples of opportunity from natural phytoplankton assemblages. In addition, DNA amplification and sequencing techniques will be employed to examine heterogeneity in the genes encoding flavodoxin in natural phytoplankton assemblages. ***